Low Energy Nuclear Physics at Princeton - The Borexino Solar Neutrino Experiment

Borexino is a new solar neutrino experiment that will use 300 tons of
high purity liquid scintillator to measure the low energy part of the
solar neutrino spectrum (E < 1MeV). More than 30 years of experiments
have shown that fewer solar neutrinos are detected than expected from
the nuclear fusion reactions that power the sun. Recent experiments
indicate that the discrepancy is due to "neutrino oscillations", a
process in which neutrinos produced in the sun as "electron-neutrinos",
oscillate to a non-electron-neutrino state. The oscillation process is
possible if neutrinos do indeed have a finite mass, rather than a zero
mass, as is the case in the present standard model of elementary
particles. If oscillations are confirmed, and neutrinos have mass, the
result would be a major departure from our current understanding of
elementary particle, with important implications in physics and
astronomy.
The latest experimental data of the Sudbury Neutrino Observatory,
together with the SuperK experiment, provide the most convincing
evidence that neutrinos are oscillating. The interpretation of these
and other data in the Mikheyev-Smirnov-Wolfenstein theoretical framework
indicates that oscillation effects for neutrinos below 1 MeV could be
dramatic. One observational possibility is a large day/night asymmetry
in count rate for low energy neutrinos. Borexino is designed to measure
the 0.86 MeV 7Be neutrinos and is thus well positioned to explore this
unique low energy neutrino oscillation effect.
The Borexino detector is located in the Gran Sasso underground
laboratory in Italy. The low background requirements necessary for
detecting 7Be neutrinos pose formidable technical challenges. After
several years of R&D with a prototype detector, and four years of
construction, Borexino is expected to become operational in 2002. The
objective of this proposal in the two-year period 2002-2004 is to
complete the commissioning and start-up phase of Borexino and begin
taking solar neutrino data. This proposal will support the Princeton
University Group in completing and operating the muon detector and the
scintillator purification, filling, and containment subsystems of the
detector. It will also support the early stages of data acquisition and
data analysis.